Vertex Operator Algebras, Elliptic Genus and Conformal Nets

The PI plans to study the structure and representation theory for
vertex operator algebras, the connection between vertex operator
algebras and geometry, and the connection between algebraic and
analytic approaches to 2 dimensional conformal field theory. In
particular, the following topics will be studied: (1) The
Frenkel-Lepowsky-Meurman's uniqueness conjecture of the moonshine
vertex operator algebra. The goal is to prove the conjecture completely
and to obtain a characterization of the Griess algebra (independent of
the monster simple group). This is a part of program of classification
of holomorphic vertex operator algebras of central charge 24. (2) The
chiral ring (which was defined by physicists in the study of super
conformal field theory and super string theory) of a N=2 unitary vertex
operator superalgebra and elliptic genus of a Calabi-Yau manifold. The
purpose is to understand the role that the chiral ring plays in the
structure and representation theory of vertex operator superalgebra,
and to investigate to what extend the chiral ring of the vertex
operator superalgebra associated to a Calabi-Yau manifold determines
the elliptic genus of the manifold. (3) The connection between vertex
operator algebra (an algebraic approach to conformal field theory) and
conformal nets (an analytic approach to conformal field theory). This
is a long term program. The goal is to construct vertex operator
algebras and conformal nets from each other. This will lead to a
unification of the algebraic and analytic approaches to 2 dimensional
conformal field theory.

The theory of vertex operator algebra provides an algebraic foundation
for the 2 dimensional quantum conformal field theory in physics and is
also deeply related to many important areas of mathematics such as
representation theory, group theory, modular forms, topology
invariants, and C*-algebras. The planned research links vertex algebra
operator algebras with topology, C*-algebras and quantum field theory,
and has important applications in both mathematics and physics.